Meeting: Keystone Symposia on "Plant Abiotic Stress and Sustainable Agriculture" to be held in Taos, NM from January 17 - 22, 2013

There is an urgent need to increase global crop production to meet the food, fiber and bio-fuel demands of our growing population. The major focus of the Keystone Symposia meeting on Plant Abiotic Stress and Sustainable Agriculture will investigate how crops can be modified to enhance productivity in extreme environments, such as the extremes in water availability and temperature, salinity, nutrient deficiency and other factors associated with global climate change. This grant supports the participation of graduate students at this meeting.